Faculty Awards for Women

The PI plans to study the tropical convective systems and their impact on the forcing of tropospheric and mesospheric circulation patterns by utilizing satellite data bases in conjunction with data obtained from wind profiles. She will also examine the relationships between satellite derived measurements of atmospheric water vapor and vertical wind profiles measured by the radars in the tropics in order to provide insight into the dynamics of vertical energy fluxes which couple the energy from the source regions to other heights. She also plans to obtain the statistics of cloud composites associated with convection in order to force a model of an atmosphere on a rotating sphere to establish the mode structures in the wind field that will be present in the troposphere, stratosphere, and mesosphere. The model-generated mode structures will be compared with the radar observed mesospheric structures of the diurnal tide, quasi two-day wave, and other longer period wave motions. Additionally, the PI plans to gain expertise in two other atmospheric radar probing techniques, the MF/HF radar and the 1 GHz boundary layer radar.